POWRE: Technology Use in a Differential Equations Course

REC-9973616

The proposed POWRE grant will enable me to pursue my career goals. These goals are to:

(a)Impact changes in undergraduate mathematics education by providing sound research upon which curriculum developers and instructors can base reforms;
(b)Become a better teacher of mathematics, becoming part of a community of mathematics teachers at the university level focusing on student learning; and
(c)Become a source locally, nationally, and internationally for discussions about and innovations in curriculum and instruction at the undergraduate level.